POWRE: Endocrine Disruption in Male and Female Fish: The Relationship Between Vitellogenin, Sex Differentiation, and Individual Fitness

9815883 Cheek Dr. Cheek will test the hypothesis that endocrine disruption reduces an animal's fertility (individual fitness). This project is designed to answer the question, "if male fish make egg yolk or females make it on the wrong schedule, do fish fertility and populations size change as a result?" Field and laboratory studies have shown that alterations in normal hormone levels and sex differentiation occur in animals in response to environmental contaminants but few studies have directly linked changes in endocrine function with changes in individual fitness. This POWRE award will enable Dr. Cheek to conduct experiments that determine whether or not changes in yolk production or sexual development predict changes in fertility in fish. It will also afford her the opportunity to have access to special facilities that are not available at Southeastern Louisiana University.